High Performance Immobilized Metal Affinity Chromatography

Immobilized Metal Affinity Chromatography (IMAC) has substantial utility as a protein purification tool for both analytical and preparative applications. There is a strong market need for an IMAC support suitable for high performance liquid chromatography (HPLC). Chromatochem has developed an HPLC support with good pH stability, low nonspecific binding, good capacity, durability and rapid absorption kinetics. Capture ligands are immobilized on large particle silica via a 50A hydrophilic tether. This research will combine the ChromatoChem HPLC affinity support with well-characterized affinity support with well-characterized affinity probes for IMAC of proteins. Phase I goals are to prepare and characterize two new IMAC supports for HPLC, measure the protein on the columns. These studies will define the utility of immobilizing IMAC affinity probes on hydrophilic tethers for rapid, high resolution protein purification.